Current and Future Trends in Nonparametrics Conference 2007

An international conference on `Current and Future Trends in Nonparametric Statistics' will be held October 11-12, 2007. The conference is co-sponsored by the National Institute of Statistical Sciences. It will feature four plenary talks by internationally prominent researchers. There will also be eight to twelve topic-orientic sessions, each session having four invited talks. There will also be contributed session for junior investigators and graduate students.

Nonparametric statistical methods are methods which avoid unrealistic assumptions about underlying structures in scientific studies. The advent of universally-accessible, powerful computing, and also of massive data sets arising from automated data collection and remote sensing, has brought nonparametric methods to the forefront of statistical theory and practice. The goal of the proposed conference is to present some of the most important recent advances in nonparametric statistics and to discuss future research directions. The conference is expected to accelerate interactions and collaborations among researchers in the important area of nonparametric statistics, and thereby lead to the development of new and more modern methods of nonparametric modeling and inference.